CISE Research Instrumentation: Establishment of a High Performance Real-Time Visualization Research Laboratory

9729853 Kesavadas, T. Bloebaum, Christina State University of New York - Buffalo CISE Research Instrumentation: Establishment of a High Performance Real-Time Visualization Research Laboratory This research instrumentation grant contributes to the purchase of an ONYX 2 Silicon Graphics computer with Infinite Reality Engine dedicated to support research in Computer and Information Sciences and Engineering. The award will enable the following projects: - Virtual Manufacturing Visualization, - Visualization Environment for Large-Scale Multidisciplinary Design Optimization (MDO) Problems, - Visualization-Based Mass Customization of Complex Assemblies, and - Analysis and Visualization of Multidimensional Biomedical Structures. The research instrumentation will foster new knowledge in four research areas: (i) Virtual Reality (VR) based manufacturing and design, (ii) Multivariable concurrent design visualization, (iii) Analysis and visualization of multidimensional biomedical structures and (iv) Visualization-based mass customization of complex assemblies. In the first application, this computer will be used to develop a Virtual Factory Testbed consisting of models of machines, processes and simulations where new factories and products can be tested without having to build costly physical prototypes. In the second application, a new method called "Graphmorphing" will be developed to enable multi-variable design optimization of aircraft and automobiles. In the third application, researchers at UB will use the visualization laboratory for very advanced bio-engineering application namely study of Microscopic Biolomedical Structures in 3D and Multimodality Cranial Structures for Radiotherapy. In the fourth application a new Visualization-Based Mass Customization of Complex Assemblies will be developed which will benefit selective design of new products in an efficient way.